PYI: Compilation of Scientific Matrix Programs for Parallel Machines

This Software Capitalization award supports the development and implementation of algorithms for manipulating sets of linear constraints over integer variables. The resulting software is used for array data dependence analysis, among other purposes. A preliminary version of these algorithms is used for dependence analysis, and is quite powerful and capable of being used in a production compilers. The software is distributed freely.